TRP: Product Realization Consortium

9413089 Sisson Five universities--Worcester Polytechnic Institute, MIT, Cornell and two Historically Black Colleges and Universities, North Carolina A&T, and Tuskegee--have come together in an ambitious project to remake undergraduate engineering education. The project is based on a vision of the future engineering workplace in which virtual organizations are formed over the National Information Infrastructure to create new products. Each school will have a "Design Studio of the Future" modeled on architectural teaching studios. These design studios will be electronically linked together. Students will engage in product realization projects that increase in complexity over four years. For a senior project, students from all five schools will form teams that "meet" over the Internet in real time to design and prototype a new product. The schools also will develop and use modular courseware for manufacturing that can be used at other schools.